Topics in Model Theory

Abstract

Award: DMS-0300639
Principal Investigator: Anand Pillay

The proposal covers problems in several areas of model theory (a
branch of mathematical logic) and its applications. On the pure
side are problems involving definability and fine structure in
models of simple theories, which will be approached using the
theory of elementary pairs of models. Also questions on the
structure of the Lascar group, a certain Galois group attached to
any first order theory, raise new conjectural relationships
between first order logic and descriptive set theory. The applied
side of the proposal deals mainly with jet-space methods in
differential fields, the Galois theory of differential equations
in positive characteristic, and the model theory of Kahler
manifolds. Among the common themes on the applied side is the
manner in which model theory predicts that the further a
definable set is from algebraic geometry, the more rigid is its
structure, and the mathematical implications of this behaviour in
the concrete situations under investigation.

The proposal is in a certain branch of mathematical logic called
model theory. Modern mathematical logic developed in the
twentieth century. Although the present proposal does not touch
directly on computability questions, it is worth remarking that
mathematical logicians such as Turing provided the first rigorous
notions of computability and played a role in the development of
actual computers. Model theory, on the other hand, is concerned
with a detailed study of the language in which mathematicians
express themselves and define mathematical
objects. Model-theorists such as Robinson and Tarski showed how
such preoccupations can have wide-ranging implications for
mathematics itself, and so indirectly for science as a whole. The
development of nonstandard analysis provides an example. The past
fifteen years have seen striking advances in applications of
model theory to areas of mathematics such as number theory and
geometry. The proposer plans, among other things, to extend these
advances, using new methods he has recently developed.